18th Annual Workshop on Automorphic Forms and Related Topics

18th Annual Workshop on Automorphic Forms and Related Topics

Abstract.

This grant will support the "18th Annual Workshop on Automorphic
Forms and Related Topics." The workshop has become internationally
recognized, for both the high quality of its research talks and
the supportive environment it provides for junior researchers.
Participants will give presentations covering all areas related to
automorphic forms, including Maass wave forms, elliptic curves, Siegel
and Jacobi modular forms, special values of L-functions, random
matrices, quadratic forms, computation and applications of modular
forms, etc. As in the past, this sharing of knowledge will be of
significant benefit to the participants, as well as to the wider
mathematical community. It will also provide participants with the
opportunity to establish new collaborations and strengthen their
existing collaborations.

In addition to cutting-edge research presentations, this workshop will
feature discussion sessions, facilitated by experts, on the following
topics: Encouraging and retaining women and other underrepresented
groups in the number theory community; Applying for grants and funding
opportunities. Experts will contribute their own successful
experiences, aimed at engaging the participants in each of these
important topics. These discussion sessions will result in a written
report, to be posted on the American Institute for Mathematics (AIM)
website as a living document. This will provide a lasting benefit to
participants, as well as to their future students and colleagues.